Mitochondrial mRNA Processing in Trypanosoma Brucei

RNA processing is known to control key steps in the growth and differentiation of organisms. In mammals and yeasts, regulation of alternative mRNA 3' end processing can generate structurally transcripts that produce different polypeptide isoforms. Polyadenylation appears to be a determinant of mRNA stability and specific changes in poly(A) tail length have been correlated with translational efficiency. In T.brucei mitochondria, transcript levels, polyadenylation and RNA editing are all differentially regulated, indicating the important role RNA processing plays in the biogenesis of this organelle. However, very little is known about the mechanisms which control these processes or how they interact in the ultimate regulation of gene expression. With the development of a system to investigate precursor and cleavage, the dissection of these mechanisms and the understanding of how RNA processing can regulate mitochondrial biogenesis can be greatly expanded. %%% Kinetoplasted protozoa have provided amazingly fertile ground for the study of novel molecular phenomena such as trans-splicing, bent DNA and de novo circular gene amplifications. Probably the most surprising discovery, however, is the phenomena of RNA editing which occurs in the mitochondria of these organisms. If as has been suggested, RNA editing reflects an old mechanism and is a direct descendent of RNA replication, understanding how this system interacts with other RNA processing machineries in its regulation may give us a much broader understanding of basic genetic regulatory processes.